Extension of the Jasper Series: A Generative Approach to Improving Mathematical Thinking

The goal of this project is to produce six additional Jasper adventures plus video extensions for each adventure, and relevant print and professional development teacher materials. Included with each Jasper adventure will be an optional piece of software, called the Adventure Maker, that will allow students to create their own adventures. In addition, the adventures and materials will be field tested in sites across the country. This series, as with the previous series, will be designed to be implemented at various levels of hardware. It is designed to be used in conjunction with videodisc technology. The simplest level of technology is with a videodisc player and a hand-held remote; the second level is to use a videodisc player with barcode; the third level involves computer based control of the videodisc with hypercard stacks and computational and graphic tools. The project has an extensive research component which includes an analysis of the reactions to Jasper characters and adventures, an assessment of teachers' ideas for implementation, expanded assessments of student learning, studies of the value-added of Jasper software, and research on the Adventure Maker.